CISE Research Infrastructure: Infrastructure to Support Research on Networked Multimedia Information Systems

9502639 Kurose This award provides support to equip a networked, experimental testbed to enable research in the development of the operating system, I/O, networking, object management, and information retrieval components of future networked multimedia information systems. The testbed will consist of two shared-memory multiprocessor facilities attached to several parallel mass storage I/O devices and a high-speed ATM network. The research team will be developing several key hardware and software technologies needed to support future networked, multimedia information systems. Specific research areas include operating systems, I/O, networking, object management and information retrieval.